Microvoltammetric Electrodes

Support for Wightman's research in the development and use of ultramicroelectrodes has been renewed by the Analytical and Surface Chemistry Program in the Chemistry Division. Study will focus in three areas: mechanisms of electrochemically generated chemiluminescence (ECL), ultra-high speed cyclic voltammetry (UHS-CV), and electrochemical detection of species in supercritical fluids (SCF). Extension of Wightman's previous work in UHS-CV will lead to electrochemical methods nearly as fast as optical (laser) time-resolved methods, permitting redox chemistry to be studied by complementary techniques for the first time. ECL experiments require this high speed for elucidation of branching of excited redox species into various decay paths. Few techniques for detecting solutes in SCF exist, so Wightman's efforts in this area promise to provide an important, species selective method for detecting reactive solutes. %%% This research, supported by the Analytical and Surface Chemistry Program in the Chemistry Division, continues development of ultramicroelectordes for electrochemical detection of oxidizable or reducable species. Small size allows very rapid experiments to be done, so that observation of reactions which occur on a time scale of nanoseconds becomes possible. Among the applications of this novel technology are studies of species which emit light as a consequence of electrochemical reaction (electrically generated chemiluminescence) and detection of species dissolved in supercritical fluids (fluids which are gases at room temperature unless highly compressed).